Midwest Commutative Algebra and Geometry Meeting: A Conference in Honor of Joseph Lipman; May 17-24, 2004; Purdue University, IN

MIDWEST COMMUTATIVE ALGEBRA AND GEOMETRY MEETING:
A CONFERENCE IN HONOR OF JOSEPH LIPMAN

Commutative algebra has seen a great deal of activity
and success over the past two decades, with the solution
of important conjectures, the development of new directions,
and the discovery of unexpected connections to other parts
of mathematics, ranging from topology to combinatorics and
from computer algebra to statistics.

Perhaps the most fruitful interaction remains the one
between commutative algebra and algebraic geometry. Our
conference will continue the long standing tradition of
Midwest meetings in these fields. We will bring together
many of the leading national and international experts
on the following topics that have been of central
importance to both areas:
- Resolution of singularities
- Singularity theory
- Rees algebras and Briancon-Skoda theorems
- Duality theory and homological algebra.